Dynamics of Jet Mixing Layer

An experiment is to be conducted with a very large number of hotwire probes to diagnose the coherent structure content of a turbulent jet. Simultaneous signals from these probes wiol be utilized to create an experimental reconstruction of the flow by way of the modes inferred from a Proper Orthogonal Decomposition (POD), as well as the dynamical mode interaction. This will be compared to a POD decomposition constructed from existing nonsimultaneous data combined with modeling, to infer the quality of the model used in this latter scheme. The data will also be subjected to various conditional sampling schemes to evaluate the ability of such schemes to capture coherent structures. The research is aimed at evaluating various existing and proposed schemes to experimentally extract the coherent content of turbulent flows. Predictive modeling of such flows is presently handicapped by lack of reliable information on these structures.